The Local White Dwarf Population and the Vast New Domain of Massive Stellar Surveys

This award will support a comprehensive program to study the white dwarf population in the vicinity of the Sun. White dwarfs represent the end stage of the evolution of low-mass stars like the Sun, and are found in considerable numbers in the local volume of space. This project will permit the determination of fundamental information on white dwarfs, in particular the space and mass density, the distribution of luminosities, the fraction of white dwarfs in binary systems, the relative distribution of white dwarf spectral types, and space motions and birth rates. A major focus of this project is to establish links between well-characterized studies of the local population and the vast numbers of suspected white dwarfs being discovered by large sky surveys in the next decade. Additionally, this project will allow continued upgrading of the Villanova Catalog of Spectroscopically Identified White Dwarfs, which now contains some 12,800 objects. This catalog has long served as the primary international reference for astronomers studying white dwarfs and it will be used extensively in this study of the local white dwarf population.

The Villanova Catalog has been widely used in the astronomical community. All three groups involved in this proposal (the University of Arizona, Villanova University and the Florida Institute of Technology) will be active in education and public outreach, and will continue to involve undergraduates in the research project.